Advances to the EMT Simulation and Time-Domain Protection of Broken-Conductor Faults to Aid in Prevention of Electric Ignition of Wildfires

Electrical distribution and transmission systems can ignite wildfires if their conductors break and touch ground while energized. Because wildfires can cause substantial harms to our communities, they have been named a national concern. To aid in the prevention of electric ignition of wildfires, this project aims to: (i) advance the electromagnetic transient modeling of electric arcs that occur when conductors break in transmission and distribution lines, and (ii) engineer time-domain broken-conductor protection elements to swiftly de-energize one or more broken conductors immediately after they break. The intellectual merits of the project includes: (i) the modeling of broken-conductor electric arcs by considering the magnetohydrodynamics equations, the finite volume method, the dynamics of falling conductors, and ambient conditions involved in the phenomena, and (ii) the engineering of a time-domain broken-conductor protection element by using the traveling wave equations to estimate the arcing resistance at the location where the conductor breakage occurs. The broader impacts of the project include safer communities with more effective protection policies enacted by better informed lawmakers and stronger community resiliency against the electric hazards and their potential to cause wildfires with better educated general public. Such impacts will stem from activities that include: (i) a technical guide for lawmakers on wildfire risks induced by broken-conductor faults and mitigation approaches, (ii) a short course to instruct about broken-conductor faults, protections, and their electromagnetic-transient simulation, and (iii) educational videos and virtual-reality visualization for the general public.

Although there are models that capture the arcing inside circuit breakers and short-circuit faults, the barrier is that there are no models that capture the multi-physics nature of broken-conductor faults to study associated protections. Such a barrier limits the ability to study via electromagnetic-transient simulations the performance of broken-conductor protections to aid in prevention of wildfires under a variety of scenarios. Also, there is a need of time-domain protections that can swiftly detect broken conductors before the electric arc extinguishes even when multiple conductors simultaneously break. Available protection methods using phasor approaches are relatively slow because they are engineered to detect an open circuit which is only possible after the electric arc of the broken conductor fully extinguishes. In this project, the proposed electromagnetic transient modeling of electric arcs caused by broken conductors and engineered time-domain broken-conductor protection elements to swiftly de-energize broken conductors will comprehensively address these problems.